Georgia International Topology Conference, May 21 - June 2, 2001

DMS-0110085
Gordana Matic

This award provides partial support for participants to
attend the 2001 Georgia International Topology Conference
to be held at the University of Georgia, May 21 through
June 2, 2001. Since 1961 the University of Georgia has
organized and hosted a major international topology conference
every 8 years. The 1961, 1969, 1977, 1985, and 1993 conferences
came at times when fundamental new ideas were surfacing to set
the direction of topology for the next few years. The theme of
this year's conference is primarily on geometric topology with
special emphasis on contact and symplectic topology and related geometries. Further information, including invited speakers,
schedule of talks, housing and travel information and application
is available at http://www.math.uga.edu/~topology/.